Relaxation in Skeletal Muscle

Models of relaxing derived from studies on skinned fibers and isolated proteins must ultimately be tested on intact muscle. The aim of this proposal is to measure relationships among events connected with reciprocal regulation by (i) Ca2+int and (ii) cross- bridges. The fraction of attached bridges lags behind the fall in Ca2+int and relaxation in intact cells. Cross-bridge attachment itself may slow relaxation (Weber and Murray, 1973). Quick length changes cause the appearance of extra Ca2+int in cardiac and barnacle muscle (Ridgeway and Gordon, 1984), but not in vertebrate skeletal muscle (Fuchs and Wang, 1991). Quick length changes will be applied to aequorin-injected frog skeletal muscle to probe the relations among (i) Ca2+int, (ii) rate of relaxation, (iii) stiffness, (iv) filament overlap, and (v) degree of activation (Cecchi et al., 1986) The results will refine the concept that mechanisms underlying g muscle relaxation are perceivably of more than one kind. The physiological importance of dual regulatory mechanisms will be determined and the relative contribution of Ca2+int and cross-bridges in reciprocal regulation will be defined.